Geometry of Conformal and Quasiconformal Mappings

Abstract for DMS - 0103626

The PI, Christopher Bishop, will study the geometric properties
of conformal mappings in the plane and quasiconformal mappings in space,
focusing on the expansion properties of such maps and investigating
various applications to geometric function theory, dynamics and
topology. The PI has shown that a result of Dennis Sullivan's
concerning the geometry of convex
bodies in hyperbolic three space implies a factorization
theorem for conformal mappings in the plane and this, in turn,
implies uniform bounds on the amount of
contraction a conformal map in the plane can have. Finding the best constants
in the factorization theorem has consequences for well
known problems such as dimension distortion, integral means and Brennan's
conjecture. The PI will continue his work on
limit sets of Kleinian groups, a natural and important class of fractal sets.
The questions here are mainly to estimate the fractal dimension of these sets
and study the behavior of the dimension as the group is deformed.
The PI will also work on the metric properties
of harmonic measures, particularly results which quantify the
idea that harmonicmeasure cannot be concentrated on a small set. Problems include the
lower density conjecture, stability of harmonic measure and the growth rate
of diffusion limited aggregation. A few other questions
involving quasiconformal and biLipschitz maps are also considered.

Conformal mappings are a class of functions which are important
in many area of mathematics and which are closely related
to mnay physical problems (fluid flow, heat conduction,
electric fields, random growth models, ...) and have been
intensively studied for many years. One of the fundamental
properties of such maps is expansion; they tend to push
points farther apart on average. Making this precise has
motivated much research in mathematical analysis.
The PI has discovered a new way of quantifying
this expansion by approximating conformal maps by (the more
general class of) quasiconformal maps and showing these
approximations may be taken with a very strong
expansion property. This has given a clearer understanding of some
known results and has led to progress on new problems.
In particular, it implies new results about Kleinian groups
(these are important examples of conformal dynamical systems,
and hence a contribution to the more general area of
dynamical systems, fractals and chaos). The PI's approach
also ties the behavior of conformal maps to the geometry
three dimensional hyperbolic space; this connection seems
to be new and should lead to many interesting problems
and more interaction between the areas of complex
analysis and three dimensional topology (already connected
in other ways). He will also investigate the computational
aspects of this connection which may lead to new methods
of computing conformal maps and Greens functions (important
for a variety of applications). The PI will also continue
his investigation of other problems including the geometry of random
paths such as Brownian motion, the stability under
perturbation of certain dynamical systems and fundamental
geometric properties of conformal and quasiconformal mappings.